ADMI: Workshop on Building Excellence Through Direct Involvement, August 1992, New Orleans, Louisiana

This project supports a workshop for the member institutions of the Association of Departments of Computer Science and Engineering at Minority Institutions (ADMI). The workshop will concentrate on research and education issues in computer science and engineering, including sessions designed to help initiate research program, and improve instruction. An additional effort will be undertaken by the organization to provide sessions, and support for a group of individuals from Native American Institutions. The Computer Research Association (CRA) will be an active partner in the program of the workshop.